Crust-Mantle Decoupling in Flexure of Continental Lithosphere

9706140 Phillips The proposed work will broaden our understanding of the relationship between the structure and dynamics of the continental lithosphere inferred from simple elastic plate flexure models by employing more realistic, inelastic, finite element representations. Crust-mantle decoupling in convergent settings, which is inferred from anomalously low elastic plate thicknesses at some foreland basins, will be investigated. Finite element models of the lithosphere incorporating elastic-plastic and elasto-visco-plastic rheologies will be applied to this problem to determine under what conditions flexure produces crust-mantle decoupling. Finite element modeling will also be used to evaluate the importance of ostensibly second-order processes such as heat transfer within underthrust lithosphere, loading history, spatially variable strain rates, and a gravitational body force. The ultimate test of these models will be compatibility with observations at foreland basins where low elastic thicknesses are found. Crust-mantle decoupling in these environments may provide constraints on the strength and/or viscosity, and perhaps composition, of the lower crust. The end-product of this study will be a comprehensive and physically robust model of lithospheric thermal-mechanical behavior at zones of continental underthrusting. ***